Mechanics of Single- and Multi-Wall Carbon Nanotubes

MECHANICS OF SINGLE- AND MULTI-WALL CARBON NANOTUBES

Abstract

Carbon nanotubes exhibit superior mechanical properties with extraordinarily
high stiffness and strength. There are, however, virtually no continuum
studies of carbon nanotubes because it is generally thought that continuum
mechanics theories are not applicable on the atomic or nanometer scales, and
one must rely on atomistic studies. The atomistic studies, on the other
hand, have some limitations on both the time and length scales for
applications involving a large number of carbon nanotubes.The objective of the
work is to develop a continuum theory for carbon nanotubes that incorporates
the interatomic potential of carbon. We will adopt a systematic approach to
link the continuum and atomistic scales. The strain energy density on the
continuum level will be obtained by averaging the bond energy in carbon
bonds on the atomic level, which will lead to a continuum constitutive model
for carbon nanotubes. The nanoscale continuum will then be validated by
the atomistic studies.